Mathematical Sciences: Algebraic Geometry

This project is concerned with a variety of topics in algebraic geometry. Research will be done on the construction and computation of Chow groups of moduli spaces and orbit spaces, and related intersection theory; the problem of algebraic versus homological equivalences of cycles; toric varieties; and branched coverings. Algebraic geometry is the study of the geometric objects arising from the sets of zeros of systems of polynomial equations. This is one of the oldest and currently one of the most active branches of mathematics with widespread applications in mathematics, computer science and physics.